Optical Imaging of Nearshore Current and Shear Wave Dynamics

0117396

Holman/OSU

This project will develop and test techniques for extracting quantitative data on cross-shore and along-shore currents in the near-shore zone from video images. One of the motivations is to obtain better data on shear waves in the near-shore zone. Results of the video analysis algorithms will be compared with in situ data from the same site. Both video and in situ data were collected during an earlier experiment at Duck, N. Carolina. Measurements of currents derived from the video data at ten different sites will be incorporated into a numerical model of finite-amplitude shear waves in a study of the effects of bottom dissipation and horizontal mixing on these waves.